Local Mechanics Concepts for Composite Material Systems

This proposal is to partially fund a workshop on the localization concept in material response as it applied to composites. The idea is very basic to the use of analytical models of material behavior. In composites some aspects of the response are adequately modeled as local behavior and others are not.